EAGER: Stream500: A New Benchmark and Infrastructure for Streaming Analytics

Large-scale data analytics is essential to the National Strategic Computing Initiative (NSCI) and NSF's scientific discovery mission. Data-intensive supercomputing applications are increasingly important for high performance computing workloads. Current benchmarks and performance metrics do not provide useful information on suitability of computing systems for data-intensive applications.
This research effort will produce a new Stream500 benchmark, complementary to Graph500, that replicates streaming analytics workload. The current benchmark capabilities will be expanded by enabling the exiting web-based infrastructure to accept submissions for multiple benchmarks.